Advanced Manufacturing Processing to Produce Economical Ceramic Fibers

This Small Business Innovation Research Phase I project will develop a process to produce SiC multifilament fiber to sell at less than $50/lb. U.S. industry has a critical need for composite materials that require an economical ceramic/silicon carbide (SiC) fiber to produce the composite. World supply of ceramic fibers and particularly SiC is dominated by Japan whose price is in excess of $300/lb. Many industrial, aerospace and defense applications are impeded by the high cost of SiC fibers, fiber property limitations and foreign supply. Advanced innovative manufacturing processing offers the potential to produce a superior high quality small diameter multifilament SiC fiber for less than one sixth the current price. This program will develop nontraditional unique chemical vapor deposition (CVD) processing for the production demonstration of multifilament SiC fiber, establish that mechanical properties exceed existing SiC fibers and utilize operational data to demonstrate the lowest cost of all ceramic fibers.